The Energy Project

The purpose of this integrated cross media project is to build public knowledge and curiosity about energy science and policy, to encourage audience confidence in its abilities to understand energy related science, and to stimulate exchange between community-based experts. The deliverables include five hour-long radio programs focusing on the interconnected nature of waterways, climate systems, and energy sources; a digital journalism and social network site focusing on energy topics; partner-driven outreach with universities and local public radio stations; and a training workshop for ethnic media partners. The project targets public radio listeners, ethnic media readers, local urban and rural communities, and Internet users. Partner organizations include New American Media, a consortium of ethnic media producers, the University of Texas at Austin (which will provide content expertise as well as outreach assistance), local public radio stations, and scientific organizations.

Intended impacts on the general audience include building their knowledge and interest in energy science and policy, and influencing their confidence in understanding energy science, technology and engineering, as well as empowering them to voice their opinions in energy policy discussions and to make changes in their lives that will support a sustainable energy future. It is estimated that five million people will access the radio programs and web content over the sustained life of the project. Professional audience impacts include building science journalism capacity and reciprocal relationships between general and ethnic news media, as well as stimulating exchange between subject experts (e.g., water engineers and geoscientists) and community experts (e.g., community organizers and backyard gardeners) who can inform energy reporting and open new areas of discussion in the energy debate. The evaluation plan uses both quantitative and qualitative data collection and quasi-experimental designs to examine the impact of this project on both public and professional audiences.